Working Symposium of New Information Technology and Education: A Research Agenda

This workshop will bring together over 100 key researchers in computer science, engineering, and educational technology to discuss future trends in research and to develop a research agenda. The workshop will have six parallel working sessions which will focus discussion and develop working papers on a set of key research topics in the field of educational technology. These papers will be assembled with an overview paper and distributed widely.